CISE Postdoctoral Research Associateships in Experimental Computer Science - An Architecture for Mining of Semi-Structured Data on the WEB

EIA-0000536
Scheuermann, Peter
Northwestern University

CISE Postdoctoral Associates in Experimental Computer Science: An
Architecture for Mining of Semi-Structured Data on the Web

With the explosion of the Web and the advent of digital libraries, the
demand for knowledge discovery techniques for semi-structured data has
increased greatly. Semi-structured HTML documents are characterized by a
rich data model, i.e., they contain both structured values and unstructured
concepts. Exploring the semantic knowledge about the relationships among
these unstructured concepts is important but costly as an on-line process.

The postdoctoral associate will assist in developing a prototype Web mining
system that will allow its users to specify a set of constraints, either
data values or concepts, and obtain a set of rules that contain the given
constraints and other items related to the constraint set. In order to
derive these rules, the system makes use of a concept library that
differentiates between general concepts and concepts associated with
specialized domains. Specifically, the associate will 1) develop new
methods for generating partially constrained association rules and
classifications rules that make use of the extended concept hierarchies
kept in the library, 2) investigate the various lexical tools available and
see how to integrate them into Wordnet (which forms the basis of the
concept library), 3) explore various heuristic methods for deciding when a
given concept belongs to a specialized concept library or to the general
concept library, and 4) explore the use of sampling techniques in reducing
the search space of rule generation.